Matrix Analysis in Engineering and Science

MATRIX ANALYSIS IN ENGINEERING AND SCIENCE

Roy Mathias and Chi-Kwong Li
College of William and Mary

ABSTRACT

Matrix analysis finds applications in many fields
including control theory, differential equations,
economics, electrical engineering, graph theory,
numerical analysis, operations research and
optimization, psychology, quantum physics, and
statistics. However, many researchers in these
areas may not be able to use the existing results
and proof techniques in matrix analysis to develop
their theory effectively because their expertise
is not in matrix theory and there is a lack of
communication between them and researchers in
matrix theory. We have considerable experience in
matrix analysis and have developed, adapted, or
borrowed many techniques to study the subject. In
this project, they plan to develop and apply matrix
methods to different problems that arise from
applications. In addition to proving the necessary
results we will put them in more general and
accessible settings, so that the new results and
techniques can be readily used by non-specialists.

Matrix analysis is a basic tool in the physical
and social sciences, applied mathematics, statistics
and engineering. Matrices are a way of organizing
and analyzing data. Sometimes simple results in
matrix analysis are all that are needed, however,
often one needs rather subtle results. Most
scientists and engineers receive an only an
introduction to matrices. We will develop and
apply matrix methods to a variety of applied
problems and will disseminate our results and
techniques to researchers in these applied areas.
Our goal is to advance the boundaries in matrix
analysis and equip applied researchers.